Dynamics of Semilocal and Electroweak Strings and Defects

9309364 Achucarro Research in theoretical astrophysics will be concerned with the existence of large scale structures in cosmology. Such structures can be described by certain solutions of quantum field theory, and this research will clarify their geometrical properties. The research will be important for a better understanding of the past and future evolution of the universe. ***